Student Support for GEC 2004; September 26-29, 2004; Co Clare, Ireland

This award provides support for student travel to and participation in the 2004 Gaseous Electronics Conference. The conference is being held in Co Clare, Ireland, on 26-29 September, 2004. All students who receive support will present a paper at the conference.